III-COR-Small: Extending and Leveraging Probabilistic Databases for New Applications

Probabilistic databases have many important applications in areas such as
crime fighting, data cleaning and integration, moving object tracking, and
science, and have recently moved into the limelight of data management
research. Probabilistic databases are expected to allow for new data
management applications to arise that currently require substantial
bootstrapping and development effort, if they are feasible at all.
Probabilistic databases allow for very flexible ways of representing and
managing incompleteness and are a possible foundation for a new breed of
more encompassing and powerful data integration systems. Probabilistic
databases could give rise to more effective, lazy integration systems, in
which the input is initially inserted into the database with a high degree
of uncertainty, which is subsequently reduced using various forms of
corpus data, evidence, and probabilistic mappings and rules.

The primary goal of this project is to perform foundational research and
develop a probabilistic database management system that can support such
applications. The first aim of this project is to work on efficient query
processing techniques, with a particular focus on the essential problems
of computing tuple confidence values and the closely related problem of
conditioning a probabilistic database. Both are known to be
computationally hard, and efficient techniques are expected to have to
make use of the state of the art in algorithms for constraint
satisfaction. In some applications, such as ad-hoc query processing for
decision support, exact query results are not necessary. Previous work has
pointed out efficient approximation techniques for simple queries, namely
for the ranked retrieval of results of conjunctive queries together with
their confidences; however, there is currently no work on approximating
queries that themselves make use of confidence values, for example in
selection operations.

Approximating expressive, compositional queries on
probabilistic databases is a second main focus of the planned project.
Thirdly, nearly all previous work on probabilistic databases has focussed
on designing representation systems and query languages and laying the
foundations for efficient query processing. For real data management
applications to use probabilistic database systems in the future, it must
also be possible to update such databases, and to run transactional
programs on them. While no work on this exists in the literature,
uncertainty in the data poses a number of fundamental challenges to be
addressed as the third main aim of the project.

The homepage of the MayBMS project which is the subject of this proposal
can be found at http://www.cs.cornell.edu/database/maybms/ .